U.S.-France Cooperative Research: Small Angle X-Ray Scattering Studies of Block Copolymer Ionomers and their Blends

This award supports U.S.-France cooperative research in materials science between Robert A. Weiss of the University of Connecticut and Claudine Williams of the University of Paris Sud (Orsay). The investigators plan to conduct small angle x-ray scattering studies of block copolymer ionomers and their blends. They propose to characterize the microstructures of lightly sulfonated di- and tri-block copolymers to determine their composition, sulfonational level and cation. Microstructure and temperature studies will be carried out using the synchrotron light source available at LURE (Laboratoire pour l'Utilisation du Rayonnement Electromagnetique). Dr. Weiss brings to this collaboration extensive experience in the synthesis and characterization of block copolymer ionomers. This is complemented by Dr. Williams' expertise in the use of synchrotrons for small- angle x-ray scattering studies generally and specifically related to ionomers. The project will benefit from the excellent facilities at LURE. Copolymer ionomers are an important class of materials whose chemical composition, properties and microstructure can be adapted by polymer chemists for specific applications. Polymeric materials are utilized in microelectronic and information storage devices and in the aerospace, marine, automotive and biomedical fields. Ionomers have important applications as membranes, thermoplastic elastomers and adhesives. This project will advance our understanding of structure-property relationships of copolymer ionomers and their potential as advanced materials.